The Fifth International Conference on Biochemical Engineering; Henniker, New Hampshire; July 27 - August 1, 1986

A conference on biochemical engineering will be held. The objectives of this conference are to bring together from all over the world biochemical engineers, chemical engineers, microbiologists, biochemists, geneticists, biologists, life scientists, and other engineers and to share and assess the most recent advances and future needs in such rapidly expanding areas as recombinent DNA, genetic engineering, tissue cultures, biochemical engineering and biotechnology. The topics to be covered are: basic advances in biological sciences; basic advances in physical sciences; bioreactors for tissue culture; bioreactors for immobilized biocatalysts; bioreactors for systems with spatial heterogeneity; mixed cultures and genetically unstable populations; estimation, biosensors and reactor state estimation; integration of reaction and recovery; current status and near-term research needs in biochemical engineering.